CCP: Connection and Access to the Internet

The Community College of Philadelphia requests support from NSF to connect its campus to the Internet. This grant will be used to help the institution get access to the Internet. VoiceNet, a local service provider, will provided the the lines used to access to the Internet. The Community College of Philadelphia needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general.